Minority Postdoctoral Research Fellowship Graduate Student Travel Award

This action funds a travel award to a minority graduate student. Ms. Zamudio will visit the laboratory of a prospective sponsoring scientist for an NSF Minority Postdoctoral Research Fellowship application.